RENAISSANCE: THE SCIENTIST (Television Series for PBS Broadcast)..

The purpose of the NSF grant is to support the production of "the Scientist:, an hour-long film in a six-part television series entitled RENAISSANCE. Designed to appeal to non- specialists -- the general public as well as high school and college students -- the film will recreate the ge of the Renaissance by drawing on a mixture of animation; documentary footage of historic sites and art; interviews with contemporary figures who represent the continuing influence of the Renaissance; and actors speaking the words of the period. Viewers will thus hear the words of great figures; see the results of their work; and be treated to re-enactments that evoke their lives. Like al the films in the series, "The Scientist" will trace an important theme of the Renaissance -- in this case, the birth of modern science -- using all aspects of its society and culture to convey both a sense of the past and a perspective on the present. 'thanks to the rich materials of the age, and the lively confrontations it witnessed, a modern audience will come to understand both the origins of the scientific outlook and -- through the interviews with contemporary scientists -- how it continues to shape our world.